Earthquake Resisting Strength of Frames with Locally Buckled Members

An analytical and experimental study of the dynamics and post-local buckling behavior of the plastic hinges of steel members under nonproportional loading is unloaded, and their influence on the earthquake-resisting strength of structures is investigated. A series of experimental studies are conducted on the inelastic behavior of structural subjected to selected load combination applied cyclically and non-proportionally under quasi-static, as well as dynamic, loading conditions. Two high-speed actuators which are controlled independently are used. Local instability of the structural members at plastic hinge locations are observed and recorded by computer-controlled optical device. Based on these results, an effort is made next to formulated an analytical model similar to the two-surface materials model to describe the "plastic hinge" behavior of thin-walled structural members.